Conference: Thermal Emission Spectroscopy and Analysis of Dust, Disks, Regoliths, to be held in Houston, Texas

Sitko, Michael
"(Meeting Support) Thermal Emission Spectroscopy and Analysis of Dust, Disks and Regoliths"
AST-9819368

Partial support is requested for a three-day meeting entitled "Thermal Emission Spectroscopy and Analysis of Dust, Disks and Regoliths." The meeting is scheduled to occur at the Lunar and Planetary Institute during April 28-30, 1999. The focus of the meeting will be on evaluating the extent to which laboratory data can be used to interpret the spectroscopic thermal emission properties of dust in the interstellar, protostellar and circumstellar environments and also in solid body surface regoliths. The talks will be organized along four parallel themes:

1. What are the limitations of using laboratory reflectance spectra to interpret the thermal emission properties of solid particles in space?
2. To what extent do the thermal emission spectra of stellar disks support the notion that the emitting particles share physical properties with the regoliths of astronomical bodies?
3. Under what conditions is a spherical approximation for such particles valid?
4. What are the uncertainties in the measured optical constants?

A number of internationally recognized experts will present invited discourses on various topics related to the use of rotational and vibrational emission spectra as diagnostic tools for studying astronomical dust particles ranging in size from 5-50mm. The Astronomical Society of the Pacific has agreed to publish the proceedings of this meeting, so that the results will be broadly available to the astronomical community.

Funds are requested for partial subsidy of the publication expenses of the proceedings and travel support for two invited scientists from the Ukraine.